Space and Time Scaling of Sea Ice Deformation: Estimating Sub-Grid Scale Variability

Stern
0612023

Funds are provided to develop new spatial and temporal scaling analyses of Arctic sea ice deformation. These analyses are anticipated to result in improved understanding of sea ice properties, estimation of sub-grid scale variability of ice deformation in global climate models and its impact on ice production, and provision of a basis for comparing disparate measurements of deformation. Sea ice deformation is recognized as an important process controlling the ice thickness distribution across a wide range of space and time scales. The thickness distribution, in turn, influences the sea ice mass balance. Scaling analysis attempts to statistically relate quantities measured at different scales. The proposed effort builds on previous work by the PI. It will allow him to establish scaling relationships for sea ice deformation by region and season, using extensive satellite-derived data sets.

Successful development of scaling laws will provide useful diagnostics against which to test developing sea ice modules in global climate models. Improved understanding of the distribution of sea ice thickness will contribute to the accurate parameterization of this characteristic in sea ice models.